CT: Authenticating Reality

Authenticating Reality 0627645

Digital photography is a poor way to authenticate reality because
digital photographs are notoriously easy to manipulate and falsify.
This same unreliability applies to other digital media: voice
recordings can be spliced and synthesized and digital manipulation of
movies is a high art. Nonetheless, it is people's nature to believe
what they see and hear, and falsified digital recordings are
frequently used to influence public opinion. Doctored images of
political figures, scientific and legal evidence, and news and current
events are commonplace.

This project explores new technologies, based on cryptographic
hardware, advanced digital signature schemes, and computer-vision
techniques, to enable users to verify the authenticity of digital
photographs and other media. With tamper-proof cryptographic hardware
embedded in digital cameras, photographers can produce photos along
with proof of their authenticity. By employing homomorphic signature
schemes, photographers and editors can perform necessary scaling and
cropping on those images while maintaining the proof of authenticity.
By authenticating other internal state of the camera when the picture
is taken, we can strengthen existing machine-vision fraud-detection
algorithms and enable new ones.

This project may revolutionize the way society values and uses
photographic and other digital evidence. The research serves the
interests of all scientific disciplines --- not just computer security
--- as well as the disciplines of law, economics, and journalism.